Neuronal Dynamics of The Basal Ganglia and Related Systems

Terman
0103822
The investigator and his colleague develop geometric,
dynamical systems tools for analyzing biophysical,
conductance-based models for a broad class of neuronal networks.
These systems arise in numerous applications including motor
activity, sensory processing and learning. They also develop
computational models for the generation of sleep rhythms,
epilepsy and parkinsonian tremor. The investigators also
construct and refine a mathematical and computational model for
electrical activity in the subthalamic nucleus and external
segment of the globus pallidus. These are two nuclei in the
basal ganglia, a part of the brain involved in motor activity.
Dysfunction of the basal ganglia is associated with movement
disorders such as Parkinson's disease and Huntington's disease.
The model is used to test hypotheses on the role of the basal
ganglia in both normal and pathological movement. Numerous
experiments have demonstrated that neurons within the basal
ganglia display a rich variety of dynamic behavior; moreover,
patterns of neuronal activity, both spatial and temporal, are
different between a normal and a pathological state. The
investigators characterize the possible patterns of neuronal
activity that arise in the model and determine how these patterns
change with respect to modulations of network parameters and
structure. A long term goal is to develop a model realistic
enough so that it can shed light upon the key parameters and
mechanisms responsible for the generation and modulation of
observed activity patterns.
A mathematical theory for the analysis of neuronal dynamics
helps illuminate the role played by various components of a model
in generating a particular population rhythm. These components
may correspond to some intrinsic property of individual cells, or
to some network property such as the strength and type of
synaptic coupling or the probability that two cells communicate
with each other. Clarification of the mechanisms underlying
different activity patterns may lead to a classification of all
possible rhythms that can emerge from a given network, and enable
us to determine how complicated a model should be in order to
display some observed behavior. It also helps predict
transitions of the network behavior as parameters in the model
are varied. The investigators develop models for neuronal
dynamics, and in particular of electrical activity in the
subthalamic nucleus and external segment of the globus pallidus.
These are two nuclei in the basal ganglia, a part of the brain
involved in motor activity. Dysfunction of the basal ganglia is
associated with movement disorders such as Parkinson's disease
and Huntington's disease. The model is used to test hypotheses
on the role of the basal ganglia in both normal and pathological
movement. Such models may help illuminate both fundamental
neuroscience questions and clinical issues about how the brain
and central nervous system work.